The Role of the Environment in On-Line Learning

Recently, considerable attention has been devoted to the theoretical study of machine learning. A primary goal of this research project is to understand how changes in the learner's interaction with its environment in an on-line model influence the complexity of learning. Previous work has shown that the complexity of learning depends on how the instances (or examples) are selected. The usual assumption is that the adversary selects the instances, but this investigation will center on alternative on-line models. First, the situation will be studies in which the learner selects the instances. Part of this work will be the development of a new model in which each query has a small cost, yet each mistake has a large cost. Such a model would favor learning algorithms that make few mistakes while still requesting a modest number of examples. A second alternative is to have a teacher perform the instance selection. It is planned to formalize a model of teaching that requires the teacher to find the best way to present the lesson so that any student who "pays attention" learns the lesson. This model, will be used to study the complexity of teaching. Variations of this model that place further restrictions on the learner (without confining the learner to some particular algorithm) will also be considered.